An Integrated Framework for Mechanical Verification of Fault-Tolerant Systems

Formal verification is a technique for reducing certain questions about the requirements, designs, or implementations of computer software and hardware to a mathematical form that can examined by methods having the character of calculation. Similar to the way in which questions about the properties of an aerofoil can be reduced to calculations that can be mechanized by computational fluid dynamics, mechanized formal verification uses automated theorem proving and related methods (e.g., model checking) to perform logical calculations about the properties of computer systems. Whereas testing can examine only some of the behaviors of a complex system, mechanized formal verification can examine all the behaviors of a model of the system (again, the situation is analogous to flight test vs. computational fluid dynamics). Using mechanized formal verification, suitably realistic models can provide strong evidence for the correctness of computer systems, and simplified models are often useful for detecting bugs that testing does not encounter. Mechanized formal verification is most effective when applied to the hardest and most critical elements of design. An area where it holds great promise is in the analysis of fault-tolerant systems, where the presence of faults can produce a complexity of behavior that defies other forms of analysis. The increased assurance provided by mechanized formal verification can be of particular value for fault- tolerant systems because these are generally found in applications that are critical to safety (such as aircraft and other vehicles) or national infrastructure (such as the telephone, power-distribution, and banking systems). The objectives of this research are to reduce mechanized formal verification of fault-tolerant distributed algorithms from tours-de- force to routine practice, and to develop a framework for mechanical verification of the architectures of complete fault-tolerant systems composed from such algorithms. Th e research focuses on developing systematic methods for the formal specification of classes of fault- tolerant algorithms, and mechanized strategies for their exploration and verification. These strategies will build on techniques that combine decision procedures and model checking within an interactive framework. The algorithms considered will include those for distributed consensus, synchronization, diagnosis, and group membership. The work is expected to yield improved understanding of the assumptions, constraints, and fault models underlying the algorithms studied, more refined arguments for their correctness, and coherent arguments for their synthesis into an overall architecture. In addition, the research is expected to yield new results in the construction and application of formal verification systems, and improved methods for the formal representation and analysis of fault- tolerant algorithms. ***